Presidential Young Investigator Award

This research will focus on three principal topic areas: numerical simulation of large transportation networks, scheduling in common carrier networks, and the stochastic vehicle allocation problem.